Synthesis of Smart Material Actuator Systems for Low and High Frequency Macro-Motion: An Analytical and Experimental Investigation

9414804 Naganathan This award is to demonstrate that motions of a few centimeters can be performed by smart material actuator system. A program that combines theoretical investigations and experimental demonstrations will be conducted. Potential configurations made of piezoceramic and electrostrictive materials will be evaluated for providing larger motions at reasonable force levels for non-military applications. ***